MRI: Acquisition of an Updated Digital Microscopy Station for Multidisciplinary Museum Research and Student Training

A grant has been awarded to The Cleveland Museum of Natural History to
update an aging microscope facility that supports research and training
across multiple scientific disciplines. Currently, the Museum openly
offers all Museum departments and colleagues (and their students) from
other institutions microscopes with digital cameras and computer
software for scientific analysis of images of Museum specimens. This
grant will fund the purchase of two new microscopes with digital cameras
and the computers and software needed for image analysis. A third camera
will be purchased to update the existing equipment. The Museum intends
to continue allowing access to visiting researchers. The original
research will allow for continued work in diverse areas of invertebrate
zoology, including 1) descriptions of new species of wasps; 2)
elucidation of the biology of the immature stages of various insect
groups; 3) the application of entomological data to crime scene
investigation; and 4) the use of aquatic insects as indicators of
ecosystem health in wetlands.

The Museum is committed to obtaining a better understanding of the
natural world and our place in it. Research in the broader areas of
biodiversity and ecosystem health will provide descriptive data that
will generate hypotheses to be tested. Data obtained using modern
microscopy equipment and image analysis will generate data for
application to practical questions, such as forensic entomology and
conservation biology. One of the new systems will be mobile, allowing it
to be used in Museum galleries for public interaction and incorporation
into the Museum's Distance Learning Studios for remote classroom
experiences. All equipment will be stored and used in a room visible to
the visiting public to ensure they understand the behind-the-scenes
world of Museum research and public service.